Nonlinear Problems in Fluid Mechanics, Meteorology & Oceanography

Temam
0074334
The investigator and his colleagues study nonlinear problems
from meteorology, oceanography, and fluid mechanics, using the
mathematical tools offered by analysis, the theory of nonlinear
partial differential equations, dynamical systems theory, and
computation. The part of this project related to meteorology and
oceanography focuses on the following areas: (1) Open boundary
conditions for limited domain simulations and well posedness
issues for meteorology and oceanography problems. (2) Balanced
and unbalanced models in atmosphere sciences. (3) Well-posedness
and stability problems in oceanography. The fluid mechanics
topics focus on several aspects of turbulence theory, including
the connection between the conventional theory of turbulence, the
dynamical systems approach, and the Navier-Stokes equations. The
investigators intend also to complete a research monograph on
some of these aspects of turbulence.
Central problems in meteorology and oceanography are
concerned with understanding and predicting the behavior of the
atmosphere and the ocean --- in what patterns do these fluids,
air and water, move? The mathematical equations that describe
the motions are difficult to analyze, and computations are also
difficult because the physical phenomena are complex and
nonlinear. In fluid mechanics, understanding fluid flows
generally and turbulence in particular, and developing efficient
numerical methods to compute these flows, are major themes. The
investigators study several problems related to the behavior of
atmosphere and ocean fluid flows and to their effective
computation. They also study and develop computational methods
for turbulent fluid flows of importance for industrial processes.